Cellular and Molecular Biology Undergraduate Summer Research

Occidental College Biology Department proposes to develop an REU site that will bring together a diverse group of undergraduates to do summer research in cell and molecular biology. The research will be supervised by the three faculty members involved in the Cellular and Molecular Emphasis, whose research areas are: molecular biology of aging, molecular immunology, and neurobiology. These faculty members are strongly committed to encouraging women and students of color to consider science as a career. The students will be recruited from Occidental itself, a highly selective liberal arts college with 40% minority enrollment, and from other colleges. Particular recruiting efforts will be focused upon the surrounding community colleges with which we already have ties. The program will allow each student to become familiar with the literature, perform a project, interact with the other students and the faculty in the program extensively, prepare and present a poster on their project, and interact with several off campus speakers, including alumnae/i who are presently graduate students at CalTech, USC, and UCLA.